Engineering Creativity Award: Grants for Research and Education in Science and Engineering

This research project deals with unsteady aerodynamics and its relationship to helicopter or wind turbine rotors. An important unsolved problem is the stalling of the turbine rotor during periods of high speed or gusty winds. The immediate objective of this research is to eliminate the stalling of the rotor. The response of the rotor to a wind gust will be modelled using quasi-steady aerodynamics and the results compared with experimental data. The rotor's rotational speed (circulation around the blade) will be measured to determine if it lags behind the changing pitch of the blade. An adjustment will be made so that the speed of the rotor as a function of wind gust speed will be made to increase slightly. The necessary increase will be predicted using the quasi-steady aerodynamics model. A large single-blade wind turbine/helicopter rotor model will be built with both rotor speed and blade pitch sensors. Pressure transducers will be placed in the blade at strategic positions. The model will be tested in a suitable wind tunnel. The speed of the rotor and blade pitch will be monitored as the wind speed increases in a gust-like, stepwise manner.